Workshop: A Cross-Biome Synthesis of Ecosystem Response to Global Warming; October 1998 in Santa Barbara, CA

ABSTRACT FERNANDEZ & RUSTAD DEB-9730110 Greenhouse gas emissions are expected to increase mean global temperature by 3-5 C in the next 50-100 years. The consequences of this warming for primary ecosystem processes are not yet understood, and have become tile focus of an emergent field of ecological research. This project will bring together a multi-disciplinary, international group of scientists representing 22 soil/air warming sites from seven countries to synthesize the current knowledge on the effects of elevated temperature on terrestrial ecosystems. In addition, the participantswill use this forum to discuss and launch a new GCTE Ecosystem Warming Consortium, which will have far reaching effects in supporting and promoting future information exchange, technology transfer, and synthesis efforts in ecosystem warming research.